Principles of microRNA-mediated morphological evolution

Over the past two decades, scientists have discovered that genomes are regulated not only by protein-coding genes, but also by vast networks of RNA molecules that help control how and when genetic information is used. Among the most important of these regulators are microRNAs, small molecules that can influence the activity of many genes at once. Although microRNAs are now recognized as fundamental components of genome function, scientists still know remarkably little about how they contribute to the emergence of complex traits and the evolution of biological diversity. This project addresses a central challenge in modern biology: understanding how information encoded in genomes is translated into the forms and adaptations observed in living organisms. By uncovering how microRNAs influence development and evolution, the research will advance foundational knowledge that underpins biotechnology and agriculture. The project also focuses on the soybean looper moth, Anticarsia gemmatalis, an important agricultural pest that affects soybean and peanut production throughout the Americas. The project will develop genomic resources, gene-editing tools, and experimental methods for this species, helping establish a new generation of genetically tractable insect models tailored to other insect crop pests. These resources will strengthen U.S. leadership in biotechnology research, expand workforce training opportunities for undergraduate students, and contribute to national efforts to build a resilient bioeconomy.

This project investigates how a recently discovered microRNA, miR193, regulates the development of color and camouflage patterns in the velvetbean caterpillar Anticarsia gemmatalis. Previous studies identified miR193 as a major genetic switch controlling pigmentation in butterflies and moths, but the mechanisms by which it shapes developmental outcomes remain poorly understood. Researchers will combine genome sequencing, genetic mapping, gene-expression analyses, and genome-editing approaches to identify the genes controlled by miR193 and determine how natural genetic variation modifies its effects. The project will also create new functional genomics resources for A. gemmatalis, including reference datasets and experimental tools that will benefit future studies of insect biology and pest management. By connecting naturally occurring genetic variation with developmental processes, the research will reveal how microRNAs help regulate complex traits and adaptive evolution. The findings will provide broadly applicable insights into gene regulation, developmental biology, and the genetic mechanisms that generate biological complexity.